Presidential Young Investigator Award

The research will focus on the determination of physical characteristics of asphalt cement including viscosity, penetration, and ductility. The chemical composition will be determined by using a high pressure gel permeation chromatography. The objective is to determine whether the physical properties of the asphalt cement from a selected source vary with times. The results will provide valuable data on the variability of asphalt cements supplied from a given source and the effect on asphaltic concrete mixtures.